Small Grants for Exploratory Research: Conducting Polymer Chromatography for Protein Separations

CTS-9308853 Rensselaer Polytechnic Institute Todd M. Przybycien ABSTRACT This SGER project explores the extension of electrochemical chromatography from particulate substrates coated with conducting polymer to monolithic structures. A radial flow unit will be fabricated of very porous reticulated vitreous carbon coated with conducting polymer (e.g. poly-N-alkylpyrrole) and tested for binding capacity and reversible binding of model proteins with different isoelectric points. Improvements of ion exchange chromatography in terms of throughput, separation efficiency and reagent needs will have significant positive effect on the costs of biochemical products. .D >" CHASE1 EXE , " INVADERSEXE " # J-BIRD EXE " BS SCO Es " WIN INI p * ( ÕSPL167ATMP 5 4 ÕSPL1B2BTMP Z5 ÕSPL1A4BTMP Z5 ÕSPL1406TMP 5 " ÕMF0830 TMP \5 ,+ CTS-9308853 Rensselaer Polytechnic Institute Todd M. Przybycien ABSTRACT This SGER project explores the extension ) + ı p r + ! ! F + + ( Times New Roman Symbol & Arial " h 4 e M \ 1 Nichelle Coward Nichelle Coward